Undergraduate Computer Science Education Workshop (George Washington University, Washington, D.C., March 10- 11, 1988)

The workshop in undergraduate computer science education to be held on March 10 and 11, 1988 at the Marvin Center of The George Washington University will bring together 30 leaders in undergraduate computer science education and five to ten NSF personnel concerned with computer science education and research. The organization of the workshop into working groups on curriculum, delivery of curriculum, laboratory infrastructure, and faculty will provide an excellent way of identifying the major problems in undergraduate computer science education and how NSF and other organizations can help to solve those problems. Because the National Science Board has recommended that the NSF take the lead in improving undergraduate science and engineering education, the workshop is quite appropriate. The guidance that can be provided by the workshop can thus be of great benefit to NSF as well as the discipline of computer science.